Preliminary Design of an Arctic Research Vessel

This project will continue the design process for an Arctic Research Vessel. The concept design, completed in spring 1991, received wide distribution and comment from the scientific community. As a result, a larger, more capable ship including consideration for alternative hull forms is under examination. Incorporating science operational profiles, the first phase of the project will redefine the science mission requirements and decide on the appropriate hull form. Phase two will complete the preliminary design after NSF review of the phase one results. A subcontract to the Glosten Associates will provide naval architectural assistance during both phases. The project directors are fully qualified to conduct this project having had considerable experience in Arctic research and Arctic research ships.